Development of a National Agenda for Career-Long Education of Engineers

The National Science Foundation will seekassistance from and interaction with the National Academy of Engineering (NAE) and National Research Council in the engineering research and development field. Activities to be engaged in will cover a wide range of subjects in the field of basic engineering and technology and will have been identified as a result of discussions between both parties and with other Government agencies. A Cross-Disciplinary Research Committee will be established to review the programs and management of the Engineering Research Centers to help insure that a high quality research program is sustained over the long-term. Further, a Committee will be established to review and analyze the National ScienceFoundation's current and planned Engineering Programs within the Engineering Directorate to improve the engineering research program. In addition, the NAE will make recommendations to strengthen the Engineering Directorate programs to meet the needs of engineering fields which are of basic importance to the Nation's technical and economic leadership and to contribute to the development of the manpower and research base for critical and emerging technologies in the United States.